The IAEE 12th International Conference, New Delhi, India, January 1990, Group Travel Award in U.S. and Indian Currencies

Description: This project supports travel of 25 U.S. scientists to participate in the 12th conference of the International Association of Energy Economics planned to be held in New Delhi, India in January 1990. The themes for the conference is Energy, Enviroment and Development. Typically these IAEE conferences draw attendance of 300 of which about half are from the Host country. It is expected that this project would support half the U.S. participants, those who do not have access to travel funds from other sources. The format and content of the meeting is designed to maximize the effective exchange of research results and information. Most of the panels will be devoted to questions of direct interest to both U.S. and Indian investigators. The discussions are expected to indentify specific areas for future joint research. Scope: Both India and the U.S. share certain concerns in dealing with energy production and utilization including the enviromental effects, and the economic impacts. The oil imports are a major part of the foreign trade in the two countries. The impact in India and other developing countries of the cost of oil is likely to grow as quantities and prices increase. The rural energy situtation in developing countries has hardly been improved by the recent drop in oil prices. The conference will benefit participants from developed and developing countries by allowing exchange of relevant information on problems and potential solutions that may also alleviate the deterioration of the enviroment. The Indian coorganizer Dr. R.K. Pachauri is the current president of IAEE and director of the Tata Energy Research Institute which is a relatively young but very active and respected research organization. It is likely that this meeting will produce significant results in terms of publications, exchanges of information and developments of joint research.